Structural Studies on Metal Hydride Complexes and Related Compounds

Whereas the positions all other atoms in chemical structures can be determined unambiguously by the technique of X-ray diffraction, hydrogen atoms do not have sufficient mass to diffract X-rays efficiently. Consequently, the technique of neutron diffraction must be used to locate hydrogen atoms, and this technique requires neutron sources which are available at only a few sites in the United States. This research project involves a collaboration between the University of Southern California and Brookhaven National Laboratory, where the neutron source is located. The structures of metal hydrides are of considerable academic interest because they provide examples of unique chemical bonds, such as structures in which a single hydrogen atom is bonded to three metal atoms, and compounds containing dihydrogen molecules bound to metals. Structural studies on metal hydrides and related compounds are important also to a clearer understanding of catalysis of reactions of hydrogen, of hydrogen storage in metal hydrides and of hydrogen embrittlement of metals. It is proposed to determine the crystal structure of transition metal hydride complexes using a combination of X-ray and neutron diffraction techniques, in collaboration with Dr. Thomas F. Koetzle of Brookhaven National Laboratory. Emphasis will be placed on compounds having hyrogen-bridge and metal hydride cluster complexes. Of special interest are complexes involving dihydrogen ligands, compounds containing hydrogen atoms at the center of a trigonal plane of three metal atoms, and compounds illustrating C-H-metal agostic interactions. Structures containing hydrogen in the cavities of metal clusters will be examined in a search for examples of 5-coordinate and 8- coordinate hydrogen.